VINES: Track 1: Intelligent Resilient Overlays for NextG Networks (IRONN)

Next-generation communication networks will support critical societal infrastructure. Because mission-critical next-generation applications require constant availability and real-time responsiveness, they demand a level of network reliability that no single network provider can guarantee on its own. Today, equipment failures, power outages, or cyber incidents can disrupt service and prevent applications from working. This project introduces the Intelligent Resilient Overlay NextG Network (IRONN), a software framework that sits on top of existing networks to stitch together services from different providers. Using artificial intelligence (AI), IRONN can predict network failures before they happen and automatically reroute data or reconfigure the applications deployed on edge computing resources. This project will integrate its findings into university curricula and partner with high school outreach programs.

This research will create an architectural framework for AI-driven control across multiple network providers and network types, and across the full user-to-edge-to-cloud or user-to-user flow, enabling new levels of network resilience. The technical contributions are organized into three thrusts. The first will develop novel network failure prediction models for both the underlying physical networks and logical overlay networks, based on Graph Neural Networks and Heterogeneous Graph Transformers. The second will create new overlay protocols that leverage programmable edge nodes to provide end-to-end routing control and use failure predictions to minimize connectivity disruptions while maintaining reasonable cost. Finally, the third thrust will develop application reconfiguration techniques to manage the distribution of computation in the user-to-edge-to-cloud continuum by using overlay-provided information and predictions to maintain service despite severe failures.

This project will create practical, deployable resilience solutions that can enable new network applications that capitalize on emerging AI capabilities. Its results will be integrated into classes at both the undergraduate and graduate levels at the University of Pittsburgh. The project will provide research experiences for undergraduate and graduate students.